Studies in Geometry: Convexity, Polyhedra, Rigidity, and Point Lattices

Rybnikov will study geometric and combinatorial properties of polytopes,
surfaces, graphs, and point lattices. In particular, he will address
connections between local and global convexity and convexity verification,
topological approaches to Voronoi's conjecture on parallelohedra, rigidity
and flexibility of large graphs, and perfect Delaunay polytopes in
lattices and arithmetic of inhomogeneous quadratic forms. The educational
activity will include supervision of undergraduate and Masters students,
which will help them not only improve their mathematical skills, but also
get involved in active research.

Graphs, polytopes, and lattices are studied and used not only in
mathematics, but also in applications such as operations research,
computational molecular biology, cryptography, CAD, etc. Rybnikov's
research will be motivated, among other things, by problems in software
reliability, computational molecular biology, and cryptology. For
example, convexity verification is an important issue, which is addressed
not only in academic papers, but also in widely used software, such as
e.g. LEDA; most of PI's research on rigidity and flexibility of graphs is
motivated by problems in protein structure analysis and prediction; point
lattices and quadratic forms in higher dimensions are important to the
computational complexity theory and cryptology.